Workshop: Networking Technology & Systems PI Meeting - Los Angeles, CA. (7-9 December 2005)

This project is supporting the NSF Wireless Networking PI meeting in December 2005. The meeting will be rich in new, exciting results in several areas of the wireless networks field. Important contributions are expected from the projects related to spectrum sharing, agile radio usage, and efficiency. In the past few years the wireless industry has become acutely aware of the spectrum limitations that have bounded communication system to a specific frequency band with a pre-selected modulation scheme. Progress in emerging technologies like Software Definable Radios (SDRs) and Cognitive Radios (CRs) will be reported by the PIs. Other significant breakthroughs will be likely announced in mesh and ad hoc architectures, cooperative wireless networking, and other areas.